A Program of Neutrino Physics Experiments at Los Alamos Meson Physics Facility

Research is proposed in neutrino physics at LAMPF. There are three components to the program: (1) completion of neutrino- electron and neutrino-nucleus scattering experiments using the E225 detector at LAMPF; (2) analyzing ultra high energy gamma ray induced air shower events for muon content using the E225 detector; and (3) development work on the LAMPF Large Cerenkov Detector experiment which will test higher order effects in electroweak interactions.